Doctoral Dissertation Research: Connecting Individuals and Corporations: The Rise of Mutual Funds, 1944-1990

Stinchcombe and Lounsbury This project will investigate the rise of mutual funds from 1944-1990. The main contention is that economic and political explanations of this phenomenon are inadequate. A more complete explanation addresses how mutual funds became popularly viewed as a natural investment vehicle and how corporations came to be summarized by their stock prices, which made possible the rise of stock issuances and valuations. Multiple methods will be used, including archival work, content analysis, and interviews. The research will contribute to renewed interest in the social dimensions of economic activity.